Oceanographic Instrumentation

PROGRAM: Oceanographic Instrumentation The University of Rhode Island (URI) requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the research vessel ENDEAVOR, a 177 foot vessel, that is owned by NSF and operated by URI. All of the instruments are for shared-use by a wide variety of scientists. The PI will use the funds to puchase a fume hood, equipment racks, thermal recorders, a data wiring system, and upgrades for the CTD's.